Engineering Research Equipment: Data Acquisition/Processing System for Thermal Science Studies

Equipment is being acquired for data processing in thermal science research. The availability of the equipment will make it possible to conduct studies relating to gas turbine engines, energy storage systems, and two-phase flow.